SEAM 2015 - The 31st Southeastern Analysis Meeting

This award provides funding to help defray the expenses of participants in the conference "SEAM 2015--The 31st Southeastern Analysis Meeting" that will be held March 8-9, 2015, on the campus of the University of Georgia.

This event is the latest in a thirty-year-long series that has hosted conferences covering a wide spectrum of subareas of mathematical analysis and that has become the leading venue in the U.S. for function-theoretic operator theory. SEAM 2015 will again span a broad swath of analysis, featuring four plenary speakers who will address topics in operator theory (Brett Wick), harmonic analysis (Ciperian Demeter), geometric combinatorics (Joshua Zahl), and harmonic analysis and number theory (Lillian Pierce). The conference program provides ample opportunity for graduate students, postdocs, and other young scientists to present their work.

Conference web page: www.math.uga.edu/~lyall/seam2015/